Research in geometric topology

Abstract

Award: DMS-0309480
Principal Investigator: Kiyoshi Igusa

The principal investigator proposes to develop and use his three
new formulas for the Miller-Morita-Mumford classes on the
cohomology of the mapping class group to investigate some of the
main problems in geometric topology, in particular the question
of whether these invariants are nontrivial on the Torelli
group. Igusa also plans to integrate the basic ideas into the
first year graduate topology course at Brandeis. The fundamental
concept being used is that of an A-infinity functor. Since
ordinary homology and cohomology have intrinsic A-infinity
structures and since A-infinity functors give an alternative
approach to spectral sequences, it would be both feasible and
appropriate to introduce this concept at an early stage and to
engage beginning graduate students and gifted undergraduates into
research related topics at an early stage. The lecture notes
would be made available online and expository papers would also
be posted on preprint servers to explain and disseminate the
current uses of this old concept.

This research is about graphs and surfaces. The study of the space
of all graphs and the space of surfaces is an active area of
research in Topology and Algebraic Geometry which has captured the
attention of mathematicians and theoretical physicists in recent
years because of the work of Ed Witten and Maxim Kontsevich both
of whom received Fields Medals for their influential work. Igusa
brings an innovative approach to this field by apply new methods
in high dimensional Algebraic Topology to the study of these one
and two dimensional objects. Igusa's methods have already solved
several previously unanswered questions, both theoretical and
computational. In this project Igusa plans to tackle some of the
fundamental theoretical problems in this field which his
preliminary research has found to be amenable to his methods. He
also proposed to educate the Mathematical public to demonstrate
the accessibility of these exotic methods. The impact of this
research will be to accelerate the expansion of this important
area of research and to make basic Topology more exciting to the
students who study it by incorporating topics of current research.